Biotechnology Literacy for Northern Nevada

This project is developing and implementing a Biotechnology Program at the University of Nevada, Reno. We are adapting courses and objectives from successful Biotechnology Programs at Ferris State University and Northwestern University. The program is a collaborative effort by the College of Arts and Sciences and the College of Agriculture, Biotechnology and Natural Resources, and extends from the University to two local community colleges, local middle and high schools, and the community at large. The specific goals of the biotechnology program are: 1) to meet the growing student interest in a biotechnology career-directed education via development of an intercollegiate biotechnology degree program, 2) to increase the scientific literacy of a wide diversity of undergraduate students through the addition of biotechnology into courses for science and non-science majors, 3) to enhance community interest and knowledge in the sciences by community outreach, and 4) to enhance economic development in the state by the creation of a well-trained work force of biotechnology scientists.